Renovation of the Vertebrate Paleontology Collections at Carnegie Museum of Natural History

The Section of Vertebrate Paleontology of Carnegie Museum of Natural History will over three years institute major improvements of collection facilities in Vertebrate Paleontology, specifically installation of a modern moveable compactor system in the collection area, thereby increasing storage capacity by approximately 110%. These improvements will promote and advance study, maintenance, and conservation of the paleontological collections, which are international stature and importance. These collections include over 100,000 specimens, ranging in age from Late Silurian to Quaternary and encompassing all vertebrate classes. Field research projects add specimens at the average rate of 2500 per year. The paleontology collection areas include two large rooms in the Museum's basement as well as space set aside for collections in the second floor office complex. These areas are filled to current capacity, with the result that large parts of the collections are difficult to access and crowded past optimal conditions. The only solution to these crowded conditions is to increase density of the collections, which is best accomplished by compactors. Data verification of the Section's computerized database will accompany rehousing specimens in compactors. Previous Carnegie Institute commitments to this project include computerization of the collections and additions to the staff of two full time preparators/collection managers (the latter to be implemented in 1993). Compactor installation will be preceded by development of environmental controls and renovation of spaces occupied by the collections. %%% Collections of this type comprise a nationally important suite of resources that serve to facilitate a much broader array of activities than just current research. They are key resources for educational endeavors important to all age groups and levels of specification. They provide the documentary data base for the past history of life on earth. They are important repositions for materials awaiting the attention of future generations.